7th Iberoamerican Congress on Geometry

This award provides funding for US participation in the conference "7th Iberoamerican Congress on Geometry" that will be held on January 22-26, 2018 at the Universidad de Valladolid, in Valladolid, Spain.

The conference focuses on recent developments in Analysis and Geometry, especially in the fields of Riemann surfaces and Teichmuller theory. A number of distinguished mathematicians have agreed to attend and speak at this conference. This award gives early career researchers, members of underrepresented groups, researchers not funded by NSF and the like an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at: http://iberoamericangeometry2018.uva.es/